Mechanisms in Development, Plasticity, and Regeneration: Arethe Rules the Same. Symposium in Cincinnati, Ohio, Spring 88

This award will support the 1988 Cajal Club Symposium to be held April 24, 1988 in Cincinnati, Ohio at the Convention Center. This symposium will explore some of the mechanisms which have been demonstrated during normal development (in vivo and in vitro) such as neurotrophic mechanisms, extracellular matrix mechanisms, glial guidance of developing axonal pathways, and development of motor behavior. Through formal presentations and discussions, the participants will critically explore these potential mechanisms and the interactions among them for reorganization of the damaged CNS. The research interests of the participants are diverse, and should lead to a lively exchange of ideas.